Significance of Predators in Restricting Host Range of Phytophagous Insects

This research is an experimental study of predation on insect herbivores having different diet breadths. The hypothesis to be tested is that generalist herbivores are more efficiently found and/or utilized by generalist predators than are specialist herbivores. If so, predators can be expected to be a selective force for the high degree of specialization seen in insect herbivores today. The obvious importance of mortality due to predation has not been extended to its influence on host range: the chemical coevolutionary theories have been given precedence in spite of the growing controversy over some of the essential components of such theories. There is some field evidence that predators restrict host range of herbivores, but direct comparison of relative predation pressure on insects having different host-plant ranges requires experimental manipulation to control for confounding factors such as initial differences in density. This project will experimentally test the hypothesis using an alfalfa system. Five aphid species having different diet breadths will be tested. They will be tested in pairs that are taxonomically as similar as possible but contrasting in normal host range. Four generalist predators commonly in alfalfa fields will be used to examine any differential utilization of prey. Results will address fundamental questions in community ecology and will be an applied interest for biocontrol of aphids.